Student Participation at International Nuclear Physics Committee

This award will provide support for graduate students and junior
investigators to attend the International Nuclear Physics Conference
in Berkeley, California. The conference will cover all aspects of
nuclear physics research, with special emphasis on new directions,
new opportunities, and the impact of nuclear science on society.
Held every three years, this marks the first time that the
conference venue has been in the United States since 1980.